Workshop on Mineral Physics and Earth Materials Research, May 1999

9907269
Navrotsky

This award provides partial funding support for a workshop on "Mineral Physics and Earth Materials Research." The workshop will draw approximately 20 leading members of the mineral physics research community to assess the present state and future prospects of the field. A report will be written and submitted to a committee of the National Academy of Sciences currently conducting a more general study on the broad topic of research opportunities in the solid earth sciences.
***